Development of an Advanced Neutron Stress Instrument.

This proposal requests funds to develop a neutron diffraction instrument to measure stress and to support salaries of the researchers. The instrument will measure residual and applied stresses in engineering materials by using neutron diffraction. It will be located at the university's research reactor (the source of the neutron beam). Some examples of the research to be supported include studying thermal residual stresses in cemented carbide composite materials used for cutting tools and the study of welds in metal-to-ceramic welding.